Photosynthesis and Calcification by Blooms of the Coccolithophore Emiliania Huxleyi in the Gulf of Maine

Satellite images of the sea surface taken by both the Coastal Zone Color Scanner and the AVHRR show widespread occurrence of coccolithophore blooms, especially in the Gulf of Maine and the North Atlantic Ocean. The coccolithophore Emiliani huxleyi is probably the dominant organism in these blooms, and it is the most abundant calcite producing organism on earth. In order to establish the role of these organisms in global carbon production, it is necessary to know rates of primary production of organic material and calcite. The Gulf of Maine provides an environment in which blooms can be located by AVHRR and their production dynamics studied. Field studies will determine natural rates of photosynthesis and calcification in the blooms. Laboratory studies on isolates from the blooms will establish the effects of light, nitrate and iron on coccolithogenesis, and the balance between calcification and photosynthesis. These blooms are a potential source of both organic and inorganic carbon to the deep-sea, and a unique pathway for carbon in the biogeochemical cycles of the world's ocean. %%% Satellite pictures of the sea surface often show areas of enhanced reflection due to small, single celled organisms known as coccolithophores. The calcite plates on the surface of these algal cells have been extensively studied by physiologists intested in calcification processes. Because the plates can be shed by the organisms, and the organisms themselves can sink in the sea, they provide a means by which both organic and inorganic carbon is transferred from the sea surface to greater depths. These organisms are found virtually everywhere in the world's ocean, but are especially abundant in the Gulf of Maine and North Atlantic Ocean, at times forming large concentrations or blooms. When this occurs, the plates themselves may alter the way light is transmitted in the sea, and the organisms may grow faster or slower accordingly. This study will reveal to us the rates at which calcification takes place via these organisms in the sea and the associated rates at which primary organic production takes place. Laboratory studies will reveal the interaction of light, nutrients and iron on growth and calcification in these organisms so that we can interpret satellite photos with increased understanding of processes taking place in the sea.